Inuit Perspectives on Arctic Environmental Change

Abstract:

This Communication to Public Audiences proposal from the University of Colorado, Boulder, is based on current NSF-funded research =, HSD 0624344, "The Dynamics of Human-Sea Ice Relationships: Comparing Changing Environments in Alaska, Nunavut and Greenland." A collaboration of the National Snow and Ice Data Center and the University of Colorado Museum, the principal investigato and team will develop a small traveling exhibit that hightlights aspects of environmental change in the Arctic as observed by Inuit Elders in Clyde River, Nunatvut, Canada. The exhibit will also include a section that informs the visitor on starting an oral history research project similar to the work of the principal investigator. An oral history take-home guide and material on the Web are being produced